Real and Complex Dynamical Systems

We investigate the dynamics of plane polynomial diffeomorphisms.
These mappings define diffeomorphisms of the real plane as well as
the complex plane. This project will investigate the dynamics of
the complex mappings using the methods of complex analysis and
complex geometry. An important part of our research will be to
understand when and to what extent the complex results can be
applied to the underlying real system. Our main focus will be on
the Henon family of quadratic mappings of the plane. And within
this family we study the horseshoe mappings. Among other things, we
will describe the shape of the boundary of the horseshoe locus, and
the behavior of the mappings on the boundary. We
will also apply our methods to describe the dynamics of certain bifurcations.

One motivation is that an understanding of the polynomial
diffeomorphisms of the plane should be a useful guide to the
investigation of the dynamics of general diffeomorphisms of the
plane. It should provide examples of mappings and bifurcations that
can be understood in detail and provide the examples that
serve as guideposts for the development of the theory for more
general mappings. Closely related to this is the study of birational
mappings of the plane. In particular, we will analyze birational
maps that arise in renormalization questions in lattice statistical
mechanics.